CyberTraining: Implementation: Small: Training of AI + Atmospheric Science with Focuses on Reproducibility, Uncertainty Awareness and Scalability

This project will develop a CyberTraining program for graduate students and early career researchers in data science and atmospheric science to pursue interdisciplinary research and education combining Artificial Intelligence (AI), High Performance Computing (HPC), and Atmospheric Science using advanced cyberinfrastructure (CI) resources and techniques. The training will cover domain science topics in atmospheric science and deal with the following three challenges. First, while the community has realized the importance of open science and reproducibility, it often takes a lot of effort to learn and practice reproducibility in everyday research. Second, there is still a lack of training on how to identify, quantify, and leverage different types of uncertainty in models and data in atmospheric science and AI. Third, it is not easy to build scalable AI models for atmospheric science that can utilize multiple GPUs in HPC environments for parallel and efficient model training. The impact of the research training includes scientific CI-enabled workforce development; cyberinfrastructure adoption and accessibility for trainees recruited nationwide; interdisciplinary team-based research training and free non-credit certificate online courses; and the development of AI-ready datasets and research publications.

The training program will focus on radiative transfer in atmospheric science and its applications on remote sensing of the environment. Both topics have well-established physics and can provide big simulation and observation data for AI model training. Both AI and HPC will be essential knowledge and skills to tackle some of the most challenging issues in atmospheric science. The project will offer a semester-long online training program each year which includes: (i) knowledge instruction over nine weeks; (ii) team-based research projects spanning six weeks; (iii) open-source scalable AI model implementation and publications; (iv) AI-ready open dataset generation with associated physics; and (v) certificates and career guidance for trainees. Through nationwide recruitment, the program plans to train three groups of participants: paid trainees each year for both the instruction and research phases; non-paid trainees each year in Years 2 and 3 for the instruction only phase; and self-paced learners yearly via an online learning platform starting Year 2 and beyond the project period.